Optimization for Systems Under Uncertainty: Modeling, Asymptotic Analysis, and Recursive Algorithms

Proposal Title: Optimization for Systems under Uncertainty: Modeling,
Asymptotic Analysis, and Recursive Algorithms
Proposal Number: DMS-9877090
PI: G. George Yin
Affl.: Department of Mathematics, Wayne State University, Detroit, MI 48202
Tel. 313-577-2496, Fax 313-577-7596, Email: [email]

Abstract

Technical Description:

Focusing on modeling and optimization for systems under uncertainty, this
proposal consists of four parts. Part I proposes two types of algorithms. The
first one is an approximation of an analog diffusion machine; the second
one also takes measurement errors into consideration. Our goal is to develop
asymptotic properties of such algorithms. By using weak convergence methods,
suitably scaled sequences will be shown to converge to appropriate diffusions.
Part II treats a class of hybrid models. Approximation schemes for
systems involving singularly perturbed Markov chains with weak and strong
interactions will be developed, which are useful for natural time-scale
separation and reduction of complexity for large-scale systems.
Part III investigates asymptotic properties of solutions of Cauchy problems
arising from null-recurrent diffusions. Our focus is on obtaining convergence
and rate of convergence of the solutions. One of the primary motivations comes
from the investigation of singularly perturbed systems. The results will be
useful to the ever expanding applications in optimization, controlled Markov
systems, hierarchical decision making, production planning, telecommunication,
queueing networks, and system reliability.
Part IV models single-machine scheduling problems under random processing
time, and/or under random machine breakdowns
and repairs, and/or subject to random compression of processing times.
Our objectives are to develop feasible models and to obtain optimal
scheduling policies for the underlying systems. These results will allow us
to design scheduling models and strategies for more complex jobshops by
considering integrated processes as single-machine systems.

Nontechnical explanation:

To bridge the gap between theory and applications, this research project
includes three components: modeling, asymptotic analysis, and simulation.
The ultimate goals are to provide useful models, to investigate their basic
properties, and to develop sound and feasible algorithms.
Part 1 proposes two classes of algorithms with applications to machine
learning,
image segmentation, and various global optimization tasks.
To meet the increasing demand on robust design and control of systems in
speech
and pattern recognition, signal processing, telecommunications, and
manufacturing, Part 2 aims to reduce the complexity of a large-scale
system of complex structure by using a simple system via approximation
schemes.
The origin of the planned work for Part 3 stems from the effort of modeling
uncertainties due to random influence such as demands for a product in a
manufacturing system or fluctuation in the stock market. To control
the underlying system, it is imperative to understand the system's long-term
behavior, which is our primary goal.
In production planning, it is vital to provide good strategy
in sequencing the parts to be processed by the machines. Part 4 proposes
single-machine scheduling models in uncertain environment.
The proposed work aims to develop optimal scheduling policies.
The overall planned work represents a continuation of the PI's recent
preliminary exploration in these areas. It is expected that the results
will be applicable in the further improvements of optimization methods.